Collaborative Research: The Role of Curvature in Combinatorics

DMS-0124201
Robin Forman

In recent years ideas from geometry have driven some of the
most exciting developments in combinatorics such as Gromov
hyperbolic groups and CAT(0) spaces, combinatorial Morse theory, combinatorial Ricci curvature, combinatorial differential
manifolds and matroid bundles. The central unifying notion
in geometry is that of curvature. Now, through these diverse
geometric and combinatorial theories, curvature is emerging
as a powerful tool and fundamental unifying concept in
combinatorics as well. This Focused Research Group will
explore some of the specific notions of combinatorial
curvature driving current combinatorial work, and also the
role of curvature as the basis for a coherent geometric
vision of combinatorics itself.

The notion of curvature has been one of the grand unifying
concepts in geometry and physics for well over a century.
For example, Gauss, the originator of our modern understanding
of curvature, showed that Euclidean geometry was distinguished
from other geometries as being the geometry of a space with
zero curvature. As an application he showed that it is
precisely the curvature of the surface of the Earth which makes
it impossible to draw a map of the Earth's surface (on a flat
piece of paper) that accurately portrays all lengths and angles.
Riemann generalized Gauss's work to smooth spaces of higher
dimensions, and Einstein observed that Riemannian geometry
was precisely the right setting in which to describe his
theory of general relativity (in which the curvature of the
universe is the result of gravitational forces). Partly as a
result of Einstein's work, the last century saw an intensive investigation into the curvature of smooth spaces.
Combinatorics, roughly defined, is the study of objects which
can be described by a finite amount of information. This is
precisely the mathematics that computers can do. This type of mathematics seems far removed from the geometric investigations
of Gauss, Riemann and countless others. However, there is a
growing collection of combinatorial phenomena which can best
be viewed as being finite analogues of facts about the curvature
of smooth spaces. The goal of this proposal is to come to a
coherent understanding of curvature as a combinatorial notion.
In addition, bringing together researchers from a variety of mathematical disciplines, we wish to bridge the chasms between geometry, combinatorics, algebra and topology, using curvature
as the unifying theme.